Meeting Support: Modeling Across the Scales - Atoms to Organisms to be held January 5-10, 2002, in Santa Fe, New Mexico

Sumners
0125000
The investigator and his colleagues in the Program in
Mathematics and Molecular Biology (PMMB) organize an
international conference on the subject of multiscale phenomena
at the interface of the biological and mathematical sciences.
This meeting includes a broadly multidisciplinary set of
participants, students and researchers active at the interface
between mathematics (broadly defined) and biology. This project
supports the participation of approximately 15 domestic students
and young scientists, selected from a national pool of applicants
generated by web and journal advertisements for the meeting. An
unusual feature of the meeting is an opening day of tutorials,
which prepare the attendees for the lectures, with mathematical
scientists introducing basic principles to biologists and
biologists giving tutorials for the quantitative scientists. Two
sessions focus on issues of importance to students working at the
interface between the computational sciences and biology.
Students are especially welcome to attend the meeting and present
posters on their work.
The Program in Mathematics and Molecular Biology (PMMB)
conducts research at the interface between molecular biology and
the mathematical sciences and trains students and postdocs in
this area. An essential part of this effort is a series of
conferences on mathematics and molecular biology. The meetings
provide a comfortable but challenging environment where students
and scientists from each discipline can learn about the other
discipline and about multidisciplinary approaches to the solution
of important problems in modern biology. This fosters
interdisciplinary training, catalyzes new interdisciplinary
collaborations, and in an important scientific area helps develop
more people with both mathematics and biology expertise. The
project supports students and junior scientists.